X-Ray Diffraction Measurements of Silicate Glass and Melt Structures at High Pressures

The principal investigator will study the structures of silicate melts and glasses at very high pressures using synchrotron X-ray diffraction. The study will help geologists better understand melting and melt properties throughout the Earth, and especially in the Earth's mantle.